Molecular Genetics of a New Tumor Suppressor Gene in Drosophila

We propose a molecular genetic analysis of a newly discovered tumor-suppressor gene (warts,abb.wts) in Drosophila. The gene is identified by the tumorous phenotype of mitotic-recombination clones that are homozygous for small chromosome deficiencies of the wts gene. Absence of the wts gene from imaginal disc cells causes excess cell proliferation, causes clone rounding presumably by interfering with control of oriented cell divisions, and allows cuticle to be secreted between cells as well as over their apical surfaces. The wts gene is known, from cytogenetic mapping, to be present in DNA that has already been cloned. We will isolate new mutations in wts and other unidentified tumor suppressor genes using a new method for revealing the homozygous phenotype of recessive mutations in mitotic recombination clones. We will identify the transcription unit corresponding to wts in the cloned DNA by mapping deficiency breakpoints and wts mutations at the DNA level. We will isolate cDNAs corresponding to wts and determine their nucleotide sequence in order to predict the amino acid sequence and possible function of the gene product. Antibodies will be raised against a fusion gene product made in bacteria, and the antibodies will be used to localize the gene product at both light and electron microscopic levels. We will mark wts clones in the undifferentiated imaginal disc in order to further examine the effects of the mutation on clone growth and on the distribution of cytoskeletal and cell-surface proteins. %%% The identification and characterization of novel tumor-suppressor genes in this simple model system of the fruit fly may lead to the identification of new tumor-suppressor genes in man.